Mathematical Sciences: Wavelet Modeling and Analysis of Atmospheric Dynamics and Energetics

9420011 Saltzman Describing, analyzing and predicting the state of the atmospheric dynamical system are all tasks which require dealing with a wide range of scales in both space and time. The proposed collaboration would develop new tools and concepts for these tasks, by building on the growing body of theoretical understanding and practical application of localized multiscale decomposition realized by wavelet representations. Specifically, a plan is proposed to investigate at least three problems of dynamical meteorology: (1) computing the evolution of dynamical partial differential equations such as the vorticity equation; (2) analyzing remotely-sensed and other meteorological data sets to obtain values of fields such as wind velocity, water vapor and cloudiness; (3) applying (1) and (2) to a model computation and an observational study of atmospheric energetics. These problems will also provide a test of recent theoretical results concerning efficiency properties of wavelet representations, and encourage development of new mathematical techniques and concepts to address intermediate problems as they arise.